CAREER: Robust Nonlinear Control: Problems and Challenges from Communication Networks

It is widely recognized that linear control laws are inadequate to account for
severe nonlinearities and uncertainties that many physical systems possess.
Two examples of such systems, that will be studied in this project,
are underactuated mechanical systems and communication networks.
The issue of designing performance-aimed nonlinear controllers
with robustness to significant uncertainties has drawn attention of
many researchers in the last 20 years.
Phase I of this project will continue the study of nonlinear systems with
dynamic uncertainties, initiated in our earlier work, and provide further
insights into the inherent limitations on achievable performance
caused by (input) dynamic uncertainties.
Despite many elegant results in the recent literature of nonlinear control,
their direct application to decentralized nonlinear systems with complex
interconnecting structures seems to be limited from a practical point of view.
On the basis of the new framework of nonlinear ISS (input-to-state stability)
small-gain theorems, we will develop nonlinear feedback design tools for
important classes of decentralized nonlinear systems
with applications to communication networks.

Phase II of this project is to address some interesting nonlinear
control problems in communication networks. The study of hard saturation
nonlinearities and time-varying uncertain propagation delays in such systems
will generate new decentralized/nonlinear control problems as applications
for the basic research in Phase I.
We expect that our contributions from the nonlinear control perspective
will enhance the NSF's existing investment in this active application area.

The educational element of this CAREER development plan is closely linked to
the research work. We will enhance the current control curriculum at Polytechnic
by incorporating ``nonlinear'' thinking into the classical feedback control
courses where ``linear'' methods are now the focal point, and by developing
Web-based educational tools and tutorials.
The specific goals of the educational plan include:
(1) developing a new graduate course {\em Nonlinear Systems Theory}
to report on recent developments in nonlinear systems and control;
(2) setting up a Laboratory for Robust Nonlinear Control for research and
education,
which strengthens the Department's activities in control;
(3) promoting hands-on experiments and involving undergraduate students in
research-oriented and application-driven projects; and
(4) developing interactions with practicing engineers for technology transfer
and dissemination of new theory through seminars, workshops and continuing
education programs.